SBIR Phase I: Low Cost Rapid Prototyping Using Computer Printers

This Small Business Innovation Research (SBIR) Phase I project will develop a new low-cost rapid prototyping method, based on inexpensive computer printing technology. A variety of rapid prototyping technologies have been developed with equipment costing in the range of $30,000 to $200,000. Costs like this and machine complexity have limited production to a few thousands of machines. The printing technology, by lowering entry costs to the simple purchase of specialty paper and toner, could lead to a new manufacturing paradigm favoring small, just-in-time manufacturing. Phase I will make sheets from simple hand sheet equipment and provide proof of concept.

The business potential is estimated to extend to an initial 2,000 users of rapid prototyping equipments. Applications are expected across a broad spectrum of engineering and manufacturing operations in industry.